IEECI Exploratory Grant: Integrating Developmental Instruction in Sustainability Contexts into an Undergraduate Engineering Design Curriculum

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

This engineering education research award to James Madison University will integrate instruction in sustainability into design courses across three years of the undergraduate engineering curriculum. The project will develop methods for evaluating sustainability projects to better measure students' design competencies, cognitive processes and life long learning skills. The goal is to provide hands-on learning experiences that develop students' abilities to deal with sustainability, including the environmental, social, economic and technical contexts of the problems to be solved. The overall goal is to better prepare students for the practice of engineering through developing their understanding of environmental sustainability. These techniques are expected to increase students' interest in engineering and will enhance the number who complete engineering degrees and are ready to fill engineering jobs.